Hanscom Air Force Base Support of the National Center for Atmospheric Research

This proposal supports activities conducted at National Center for Atmospheric Research supported by the Hanscom Air Force Base. The initial activity is for the Development of the Joint Precision Air Drop System with Weather Research and Forecasting Modeling System.